MRI: Acquisition of an Integrated Volumetric PIV (V3V)/Computer Modeling System for the Study of Biological Phenomena

TECHNICAL DESCRIPTION: Animals and plants reflect the physical properties of the medium in which they live, and variation in anatomy that enhances performance is the basis of natural selection and fitness. However, the insights that nature provides has often been limited by the technology available at the time. To date, the large body of experimental work that has been conducted in the field of hydrodynamics and aerodynamics of organisms has been limited to two dimensions (2D), driven in large part by the use of 2D or planar PIV (Particle Image Velocimetry). Yet the 3D nature of organismal design and fluid movements is what drives the massive diversity of body plans and designs that exist. Attempts have been made to extrapolate 2D information to provide theoretical 3D models of fluid flows resulting from biological systems, thus the precise hydrodynamic advantage of different body shapes or movement patterns remains elusive. One of the most exciting recent developments in the study of fluid flows is a new V3V or Volumetric 3-Component Velocimetry system that uses laser illuminated, neutrally buoyant reflective particles and a three camera system to provide a quantitative visualization of fluid flows in 3D. This research will use the Integrated Volumetric PIV (V3V) computer modeling System (IVCMS) to explore biologically relevant fluid flows in true 3D across a wide range of biological phenomena. The projects are specifically designed to quantitatively understand and visualize in 3D how aquatic organisms perform ecologically relevant tasks that influence fitness. Research topics range from suspension feeding and locomotion in invertebrates to ventilation, feeding and locomotion in aquatic vertebrates; and across multiple scales. The multi-user equipment will increase access to cutting-edge technology by bringing together individuals from multiple disciplines and institutions (including international collaborations). Research programs of all major-users will be greatly enhanced and will foster collaborations that will provide a research-rich environment, and stimulate the flow of progressive biological ideas designed to meet the challenges of science in the 21st century.

BROADER SIGNIFICANCE AND IMPORTANCE: Understanding fluid flows in biological systems can provide key insights into biologically-inspired engineering designs. The research will use a state of the art technique to study biologically important and biologically induced fluid flows in true 3D. Reconstructing fluid flows in true 3D has not been possible to date and this system will generate important data that can be used to directly understand how organisms have overcome the challenges of living and moving in water. The system will be located at a Primarily Undergraduate Institution (PUI), and will integrate research and education in an environment that is conducive to the excitement of scientific discovery and student driven research. This modern-day equipment will directly broaden the participation of individuals from underrepresented groups. The proposed research and cutting edge techniques will achieve the goals of providing increased access to the next generation of major instrumentation to both students and advanced level researchers. The results generated are visually appealing and likely to attract more students and retain them in the biological sciences, as well as engage them in exciting and dynamic research. Results from this research can also provide important information to improve the efficiency of aquatic engineering designs.